Interagency Agreement between the National Science Foundation and the US Department of Fish and Wildlife

US Fish and Wildlife have provided support to the Office of Polar Programs by allowing the project of Dr. James Estes, University of California, Santa Cruz, to use the MV Tiglax. The project (OPP 99-85814) titled "Introduced Foxes And Seabirds: The Role Of Top-Down Processes In Controlling Marine Subsidies To Terrestrial Ecosystems" worked in the Aleutian Islands, for 15 days, beginning 7th August ending 22 August, 2001. The vessel was well matched for the type of work, and OPP intends to develop an interagency agreement with US Fish and Wildlife for future support using MV Tiglax.